1990 Micro Electro Mechanical Systems Workshop Travel Assistance

This grant will provide support for graduate students and young facultywho do not have alternative means of support to attend the Third IEEE Workshop on Micro Electro Mechanical Systems, to be held at Nappa Valley, California, February 12-14, 1990. This workshop is the premier workshop of this emerging field, and it has contributed to the rapid advance of the field. This support will enable many young researchers who are just beginning research in the filed to attend. It is important because the field is so new that researchers have yet to establish funding that would enable them to attend the workshop without this grant.